Coupled-Oscillator Problems Motivated by Lasers

9803207
Carr

The investigator proposes an analysis of coupled oscillators motivated by
problems occurring in the study of lasers. Coupled oscillator models may
result from coupling individual laser devices or from a modal
decomposition of a multimode laser. For the models under consideration,
the amplitude of the oscillations is an important dynamical variable; this is
in contrast to limit-cycle oscillators where the amplitude is often slave to
the phase, hence reducing the dimension of the dynamical system. Thus,
even if the system maintains a desired phase-locked state, amplitude
instabilities can limit the usefulness of the device in certain parameter
regimes. Also of importance is that the use of lasers as a component of a
communications system requires actively modulating the laser output.
Dissipation is typically very weak, so excitation can lead to long
undesirable transients or to sustained chaos. Thus, the effect of excitations
ranging from periodic to impulsive must be well understood. Finally, the
laser models are highly singular due to time scales ranging from
milliseconds to nanoseconds; this provides both analytical and numerical
challenges in their study. The investigator will apply such tools as
asymptotic analysis, local and global bifurcation theory, and numerical
simulation and data analysis techniques to investigate modulation effects,
amplitude and phase control, and localization dynamics in coupled solid-
state lasers and multimode fiber lasers.

Coupled lasers are being used in applications such as space
communications, optical interconnects, fiber-optic communications, and
optical beam steering. Some important design goals of coupled laser
systems are to obtain higher output intensity of the system or achieve
beam steering. The problems investigated in this proposal will further the
understanding of these often unstable systems and lead to the achievement
of control of the desired laser output. Furthermore, wide-ranging system
configurations and many different coupling mechanisms (ranging from
nearest neighbor, to non-local, to global) allow this work to aid not only
laser technology, but also the study of coupled oscillators appearing in
other applications.